Magnetic Properties of Quasi-One Dimensional Molecular Conductors

97-01597 Naughton This is a renewal proposal to study superconducting, metallic and dielectric properties of the quasi-one dimensional molecular conductors TMTSF at low temperatures and large magnetic fields. Recent transport studies to B=7T of the upper critical field Phys. Rev. Lett. 78, 3555 (1997) provide strong evidence for unconventional spin-triplet pairing, and a novel field- induced dimensional crossover. These and similar magnetic measurements will be extended to higher fields in a search for reentrant superconductivity which has been predicted for such quasi-1- d superconductors. In the normal state, the origin of a new series of angular magnetoresistance oscillations, which map the curvature of the Fermi surface, will be investigated. A search for corresponding angular magnetic oscillations via torque magnetometry will be initiated. In the dielectric state, the origin of the "fast oscillations" will be investigated via torque and transport in pulsed fields to 100T. %%% This is a renewal proposal to study superconducting, metallic and dielectric properties of the quasi-one dimensional molecular conductors TMTSF at low temperatures and large magnetic fields Superconductivity arises when two negatively charged electrons become attracted to each other and become "paired", in spite of the fact that "opposites attract while likes repel". In all conventional superconductors, these paired electrons have opposite spin, such that the total spin of the pair is zero, a fact which plays an important role in the explanation of the superconducting state. A recent theory has predicted, however, that in certain materials in which electrons are confined to move mostly in one direction, electrons with the same, rather than opposite, spin, can form pairs, and superconduct. One consequence of this pairing would be that a magnetic field could enhance, rather than destroy , the superconducting state, opening the interesting possibility of superconductivity reappearing in very high magnetic fields. This project involves a search for high field superconductivity in a one- dimensional molecular conductor, where initial studies are strongly suggestive of equal spin pairing and reentrant superconductivity. ***